Electric Field Effects on Polymer Alloys

New recent work has demonstrated that electric fields can be used to produce phase-separated polymer alloys with unique morphologies. Film casting in electric fields has allowed the production of samples containing spherical minor phases with controlled dimensions, spherical minor phases that form "pearl chains" across the sample, ellipsoidal minor phases that form chains across the sample, columnlike minor phases across the sample, and unique morphologies in mixtures of block copolymers with homopolymers. This work will be extended using anisotropic samples which are expected to have anisotropic mechanical properties and dielectric constants, for example, when the ordered minor phases are made of conducting polymers, the dielectric constant in the direction of orientation of the minor phases is expected to be exceptionally high. When the columnlike phases are made of conducting polymers, the samples should exhibit conductivity in only one direction. The electrical characteristics of these composites are of particular interest since it is these properties and the ability to modulate them that lies at the heart of imaging, marking, and display technologies.